GSA Penrose Conference: Subduction to Strike-Slip Transitions on Plate Boundaries: Dominican Republic, January 1999

9814516
Mann

This action provides partial conference support for a Penrose Conference entitled, "Subduction to Strike-Slip Transition on Plate Boundaries," to be held in the Dominican Republic, January 1999. Results are expected to sharpen focus on research plans on this important subject.